Mathematical Sciences: Probability Theory

The principal investigators will continue their research in the general area of probability theory. The specific topics include the study of Markov chains with random transition probability matrices, the rate of escape problem for general random walk, and potential theory and stopping times applied to random media problems. Several of these topics are models of physical phenomena.